AF: Small: Algorithms for computing aggregate functions of matrices with applications to Lattice QCD

One of the most computationally challenging tasks in Numerical Linear
Algebra (NLA) is the estimation of the trace or the determinant of functions
of matrices. The computational difficulty arises for very large matrices
where the computation of the entire spectrum is infeasible. Traditionally,
this problem is approached through stochastic techniques, such as Monte
Carlo, where each step involves the solution of a linear system of equations.
Deterministic techniques could provide approximations much faster but
introduce bias in the result. This research will employ a combination of
these techniques. Deterministic techniques involve novel uses of
traditional NLA tools such as low rank approximations, deflation, and
preconditioners, not only for speeding the solution of linear systems but also
for reducing the variance of the stochastic process. The team plans to use Hadamard
vectors, which are popular in coding theory, with an ordering induced by
hierarchical graph-coloring, to produce a deterministic sequence of sampling
vectors for Monte Carlo that exploits the structure of the matrix.

Although most of these techniques address the general NLA problem, the
motivating application is lattice quantum chromodynamics (LQCD). The goal
of LQCD is to calculate the properties, structure, and interactions of hadrons,
the basic constituents of matter. Computation of observables in LQCD entails
averaging of correlation functions over an ensemble of gauge fields.
These correlation functions often require the trace of the inverse of a large
sparse matrix, or the ratio of determinants of two such matrices.

It is increasingly clear that there is an opportunity for real gains by
harnessing the synergy between randomized and deterministic techniques.
Based on such an approach, this research will advance the current
state-of-the-art in NLA, while transforming some of the standard computational
practices in LQCD. It will also be useful in other disciplines, as the
problem is common in many statistical applications, in data mining,
in uncertainty quantification, as well as in quantum physics applications
such as quantum Monte Carlo.